Conference on Mathematical Geophysics, Taxco, Mexico

This grant supports travel of 28 US scientists to the 19th International Symposium on Mathematical Geophysics to be held during the week of 21-26 June, 1992 in Taxco, Mexico.